Individual-Particle Investigations of East Asian Aerosols During Aerosol Characterization Experiment (ACE)-Asia

Single-particle analysis methods (scanning electron microscopy, SEM, and manual transmission electron microscopy, TEM) will be used to study aerosols collected during ACE-Asia (Aerosol Characterization Experiment). The primary objectives are to provide detailed information about particle compositions, size distributions, shapes, and state of mixing. Samples will be collected on board the NCAR C-130 aircraft, the R/V Ron Brown, and at the ground site at Cheju Island, Korea.